Acquisition of Capillary Electrophoresis Instrumentation and Nanospray Mass Spectrometry Source

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Trinity University will acquire a capillary electrophoresis instrument with laser-induced fluorescence detector, an argon ion laser, a HeCd laser and a nanospray source. This equipment will enhance research in a number of areas including a) investigations on porous polymer monolith, b) identification of phosphorylation sites in a specific protein system; c) characterization of signal response in plants; and d) an investigation of high affinity, reversible complexes in water.

Capillary electrophoresis is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at Trinity University, a primarily undergraduate institution. These studies will have a solid impact in the areas of polymer synthesis and biochemistry.